"Mother Goose Asks 'Why?'", a Science and Literature Program for Parents and Caregivers of Children 0-6

9453817 Anderson The Vermont Center for the Book in collaboration with the Vermont Council on the Humanities, Montshire Museum, and other Vermont science activity centers propose to develop a national model of a four-part book discussion/science activity program of early science literacy for parents of preschool children. Parents will be trained to gain confidence in their ability to do science activity kit to keep. The project expects to reach 1200 parents and 240 professionals during this three year project.